Mathematical Sciences: Mathematical Problems of Micro-mechanics

Three classes of new mathematical problems related to
micromechanics will be studied analytically and numerically.
The first problem is the investigation of nonlinear fourth
order partial differential equations describing the spreading
of liquid film along a solid surface under recently proposed
boundary conditions that represent the phenomenon more adequately
than previously used ones. The second class of problems is
concerned with nonlinear parabolic equations describing flows
of chemically active fluids where a new mathematical
formulation was recently proposed. The third class of problems
is related to the numerical investigation of new free boundary
problems for the equation of elasticity related to fatigue crack
propagation.

Micromechanics takes into account the transformation of
material microscopic structure in the process of flow or
deformation of real fluids and deformable solids.
It leads to new mathematical models and problems.
The mathematical models of three classes of practically
important problems will be constructed and investigated.
They are: flows of thin films along solid surfaces,
important for chemical and petroleum engineering;
flows of reacting fluids near critical (pre-explosion)
conditions, important for chemical engineering and internal
combustion engines; fatigue crack propagation and damage
extension, important for a wide class of mechanical engineering
problems. New mathematical models will be obtained and
investigated. Computational approaches will be combined with
advanced analytic studies.